US-India Cooperative Research: Ionization of Atoms by Electromagnetic Radiation and Charged Particles

9731206 Manson Description: This award supports the US-India Cooperative Research: Ionization of Atoms by Electromagnetic Radiation and Charged Particles." Collaborators Steven Manson of Georgia State University and Pranawa Deshmukh of the Indian Institute of Technology(IIT), Madras will continue to research problems involving theoretical calculations of the interaction of various kinds of ionizing radiation with atomic and ionic matter. They will emphasize regions which have not been explored experimentally. With the advent of the new powerful synchrotron light sources, including one in India, these systems will be more readily explored in the laboratory, thus making the proposed studies quite timely. Scope: The results will provide further insight into the basic nature of fundamental atomic processes which are important in plasma physics, atmospheric, solar and astrophysics, and radiation physics. In both countries, the research provides training for graduate and advanced undergraduate students in methods of calculating and understanding atomic and molecular structure and collisions. Additionally, for India the collaboration facilitates the build-up of an internationally competitive research program at the IIT, Madras. ***